Dynamics and Radiation Field of Musical Instruments

*** 9731613 Weinreich This grant continues the theoretical and experimental Musical Acoustics work that has gone on at the Physics Department of the University of Michigan for well over twenty years. Specific study areas proposed for this funding period include: a) The physics of wind instruments, including a new application of nonlinear dynamics and the analysis of time series to an investigation of the degrees of freedom of reeds, lip reeds, and vocal folds; b) The "directional tone color" of violins, including design of special "DTC loudspeakers" which mimic their directional characteristics' c) The physics of "dissected instruments" (in which a computer link is inserted into the fast oscillation loop of an instrument), including the coupling of a dissected violin corpus to an actual violin; d) Research into the directional characteristics of the reverberation of a room, with particular applications to architectural acoustics. As in the past, this work has implications not only for fundamental physical understanding and for the building of better musical instruments, but also for other areas of science such as nonlinear vibration analysis, wave propagation, and psychoacoustics. Its special merit in educating physicists is that it constitutes the type of research in which even undergraduates can be fruitfully involved. ***